CAREER: On-the-fly Protocols for Data Dissemination in Wireless Mesh Networks

With increasing demand for real-time multimedia services such as TV channel broadcasting, and fast download requirements by applications such as P2P, video-on-demand, and software downloads, the access network design needs to treat point-to-multipoint and multipoint-to-point traffic as first class citizens for efficient operation. The high level objective of this project is to design networking protocols over realistic time-varying channels for supporting data dissemination in wireless mesh-networks. These networks are characterized by wireless backbones as opposed to the dominant wired backbones connecting today's wireless access-points. This research is based on the novel paradigm of on-the-fly computation, where recent data-driven channel measurements are used to exploit time-variance of channels for enhanced performance. This research will enable support for emerging media-rich applications that will result in the wide-scale deployment of mesh-networks to provide ubiquitous multi-media enriched services. It will make tangible impacts to several active research areas including mesh-networks, wireless local area networks, and ad-hoc networks. To promote education, training and learning, this effort will actively involve undergraduates, women and minority students.